Capillary Electrophoresis for Laboratory Instrumentation andUndergraduate Research

Acquisition of a high performance capillary electrophoresis (CE) instrument is permitting this exciting new technique in separation science to be incorporated into our undergraduate chemistry curriculum through a specially designed set of experiments. These experiments are having a significant impact on our Quantitative Analysis and Instrumental Analysis undergraduate laboratories. The effect of these expedients includes: an introduction of CE principles and methodologies in both laboratory experiences; the development of experiment which demonstrate micellar electrokinetic chromatography as a technique for the separation of neutral molecules in the Instrumental Analysis Laboratory; and a comparison of capillary gel electrophoresis to traditional slab gel electrophoresis for the separation of DNA fragments in the Instrumental Analysis Laboratory. In addition, undergraduate CE research projects are included. *